SODA 2015 Travel Grant

This award will help support student and postdoctoral attendance at the Annual ACM/SIAM Symposium on Discrete Algorithms Science (SODA) 2015, in San Diego, CA on January 4 to 6, 2015. SODA is co-sponsored by the Association for Computing Machinery (ACM) and the Society for Industrial and Applied Mathematics (SIAM) . SODA is the premier annual research conference in the field of discrete algorithms and one of the three premier conferences in theoretical computer science. SODA has been meeting annually since 1990 and in a typical year has over 300 attendees. It is co-located with two smaller workshops, ALENEX (Meeting on Algorithm Engineering and Experimentation) and ANALCO (Meeting on Analysis of Algorithms). SODA is attended by researchers from all over the world. The field of algorithms is a vibrant one, with high participation rates from young researchers, and many papers with student authors. For these student authors and student attendees, the conference serves as a valuable educational experience, both for the technical content of the talks and for the opportunities for networking that it provides.

The award will provide partial support to approximately twenty students, partly defraying the cost of travel and lodging. Efforts will be made to support students from under-represented groups.